DISSERTATION RESEARCH: Individual Behavior and Female Associations in Fission-Fusion Equid Societies

Project Summary
This project studies the role of ecological and social factors in shaping social
organizing relationships in fission-fusion ungulate societies. Current models of fission-
fusion societies focus either on examining preferential associations between individuals
or on examining factors that determine group size and its correlation with group size
variations. Individual relationships are still not completely understood. A novel model for
analyzing individual relationships incorporating key ecological and social drivers (i.e.
forage, water, predators and bachelor males) together with female internal state is used to
predict rules for associations between individuals. The consequences of these individual
decisions for population level association and dispersion patterns are also explored. The
predictions derived from this framework will be tested using ecological and behavioral
data from two endangered Equids: Grevys zebra (Equus grevyi) and Asiatic Wild Asses
(Equus hemionus) at four sites. Both species have similar morphology, physiology and
social systems. The four sites provide natural variation in ecological and social factors
and serve as an ideal system for exploring the predictions of our model. The broader
impacts of the study include educational activities about the value of ecological and
behavioral data for lay public, students and forest managers, and improvement of
conservation strategies for endangered Equids.